Oceanographic Instrumentation

9618743 Goad This award to University of Michigan will provide new computers and water sampling bottles for use on the R/V Laurentian, an 80-foot research vessel operated as part of the University National Oceanographic Laboratory System (UNOLS). The shared-use instrumentation supported here will assist researchers to conduct studies of the Great Lakes in 1997 and in future years. ***